Maine EPSCoR Advanced Development Program

The Experimental Program to Stimulate Competitive Research (EPSCoR) in the state of Maine is conducted by the Maine Science and Technology Commission, with input from the Research Excellence Partnership. Maine EPSCoR will enhance the research competitiveness of over 20 investigators working in three research clusters: (1) Marine Molecular Biology Research Cluster; and (2) Wood Sciences and Engineering Research Center (3) Global Environmental Change Center. Collaborations are proposed among scientists at the University of Maine; the Mount Desert Island Biological Laboratory; the State Geological Survey; the Bigelow Laboratory for Ocean Studies, and the Maine Department of Marine Resources. The three research areas, which were selected on their scientific merits, are of importance to the State of Maine in terms of research excellence, human resource development, and opportunities for economic vitality. The objectives for the Maine Advanced Development Program are: (1) to develop and implement a long range plan for integrating S&E research, education, and development into the state's economic development strategy; (2) increase awareness and importance of science and engineering; (3) build and retain technical expertise; and (4) expand state support for research. Over the three-year award period the State of Maine will contribute over $5 million to ensure the success of the EPSCoR effort.